Workshop on Elliptic Curves and Computation

In the mid-1980s a flurry of ground-breaking papers introduced polynomial-time elliptic-curve point counting, the elliptic-curve method of factoring integers (ECM), primality proving using elliptic curves (ECPP), and elliptic-curve cryptography (ECC). The original papers triggered thousands of followup papers, demonstrating a spectacular series of interactions between mathematics, computer science, and engineering, with a profound impact on applications: for example, the government's current "Suite B" security standards recommend switching from RSA to ECC.

The "Workshop on Elliptic Curves and Computation" will celebrate the 25th anniversary of these papers and the subsequent 25 years of theory and practice of elliptic-curve computations. This workshop will include the 14th annual ECC workshop. The workshop will take place 18-22 October 2010 at the Microsoft campus in Redmond, Washington, with a full week of carefully selected invited lectures, including lectures on the most exciting recent research in the area.